Travel Support for U.S. Participation in the Assoication Assemblies of the International Union of Geodesy and Geophysics, August 1993 - January 1994

9309885 Spilhaus The American Geophysical Union will provide partial support for U.S. scientists to attend five different Association Assemblies sponsored by the International Union of Geodesy and Geomagnetism (IUGG). The support will enable the broadest possible cross section of U.S. scientists in all of the geophysical disciplines represented by IUGG. Travel awards for students, post-docs, minorities and women will be emphasized in the selection process. ***